Biophysical and Biochemical Studies on Ion Transport in Plants

The funded project continues testing a chemiosmotic hypothesis for the transport of ions across plant cell membranes. It is postulated that the H+ -translocating ATPases, which have been demonstrated to be located in the plasma membrane and the tonoplast, set up electrochemical potential gradients of H+ which provide the driving force for the transport of other ions and small organic molecules via proton cotransport systems. Tomato and corn roots are the experimental material. Fluorescent probes for pH gradients and membrane potentials are used in conjunction with radioactive tracers to investigate the occurence of cotransport systems for sodium, potassium and nitrate in isolated plasma membrane vesicles. An attempt will be made to identify the carrier protein for nitrate in the plasma membrane following induction of nitrate transport. Whole- cell voltage clamp recordings from protoplasts are being obtained with tight-seal patch pipets. This technique will be used to investigate the contribution of the electrogenic H+ -ATPase to the membrane potential and conductance of the tomato root cell plasma membrane. Control of the "cytoplasmic" pH and ATP level by perfusion of the patch pipet with different solutions will be used to compare the behavior of the electrogenic pump with the known kinetic properties of the H+ -ATPase. The significance of this work lies in elucidating the mechanism of ion transport in plants, a process of crucial metabolic importance. It is through ion transport that nutrients are absorbed, acidity is controlled and starting materials are provided for biosynthesis.***//